Survival in Contact. Asiatic Eskimo Transitions: 1900-1990

The Asiatic or Siberian Eskimos were under Russian/Soviet dominance during most of their contact history and subject to enormous acculturation pressure. This project will provide the first monograph on the contact history and survival of this indigenous group and compare Native transitions and government strategies during two periods in Russia, 1900-1932 and 1933-1990, and parallel developments in the U.S., Canada and Denmark.